DIMACS Special Year on Computational Intractability

This award supports three workshops, on approximation algorithms for NP-hard problems, cryptograph and intractability and intrinsic complexity of computational problems. These workshops are part of a "special year in computational intractability